Geochemical Analyses of Hydrothermal Fluids and Massive Sulfides from the Lucky Strike Site

9303408 Von Damm In this multi-institutional project the PIs will analyze chimney samples and water samples from Lucky Strike, a newly discovered vent site along MAR. This site is somewhat unique relative to previously discovered hydrothermal vent systems in that it is located on the Azores platform and that the vents are more dispersed. There are other similarities and differences. The PIs argue that the samples to be analyzed represent an opportunity to study a shallow hydrothermal system on a slow- spreading ridge. ***